2002 EarthScope Computational Science and Information Technology Workshop

Proposal: EAR-0207607
PI: Jordan
Title: EarthScope Computational Science and Information Technology Workshop

This grant is intended to support a workshop in the area of Computational Science and Information Technology (CSIT). The purpose of the workshop will be to develop preliminary plans for a CSIT component of EarthScope program that will address issues in three areas critical to the program's success: (1) data collection, archiving, and distribution, (2) modeling and simulating nonlinear geosystems, and (3) advanced information technologies for the EarthScope collaboratory. A major objective will be to cross-educate members of the geoscience and computer-science communities in the major research goals and capabilities of the two fields, and to discuss how these capabilities can be mobilized to enhance the success of the EarthScope program. The workshop will be open to about 70 participants from the geoscience and computer science. The organizing committee will produce a summary of results in the form of a preliminary CSIT plan, which will be widely circulated for review and comment. A final plan will be submitted to the National Science Foundation by August 2002. The workshop is to be jointly supported by NSF and NASA.